PEET: A Unified Approach to Systematics of Basal Streptophytes (Charophycean Green Algae)

9978117 Delwiche

The Charophyceae are a class of green algae that are thought to be very
closely related to land plants. Because of this close relationship to land
plants, an understanding of the relationships and diversity of form within
the Charophyceae is important to the understanding of the origin and early
evolution of land plants. Knowledge of these algae provides the
information needed to identify appropriate model systems for the study of
fundamental plant properties and guides the study of these algae and of
freshwater environments in general. Despite the evolutionary importance of
charophycean algae, their classification within a single group has been
recognized only recently, and the group has never been examined in a single
taxonomic study. This project is intended to provide a single, unified
taxonomic treatment of the Charophyceae, and to train students in taxonomic
methods and in the biological diversity of the group. There are five
orders within the Charophyceae, and each has a distinctive set of taxonomic
problems. The Coleochaetales are microscopic, but structurally complex
algae that have never received detailed taxonomic study, and have no known
fossil record. In this group a complete taxonomic treatment is required.
The Charales are large in size, are comparable in complexity to the
Coleochaetales, and have an extensive fossil record. This group has
received detailed taxonomic treatment, but the classification needs to be
updated with information from modern phylogenetic methods. The
Zygnematales are a large group of common and environmentally important
filamentous algae. This group is in need of a uniform taxonomic treatment
among all of the genera in the order. Finally, the Klebsormidiales and
Chlorokybales are poorly understood filamentous or packet-forming algae
that are very difficult to identify in nature. Modern methods will be used
to survey natural diversity within these groups and identify previously
unknown members of the group. The project will provide training to one
visiting scholar, approximately five graduate students, and ten
undergraduates. Information from the study will be made available via the
world wide web, by publication of scholarly articles and taxonomic guides,
and will be placed in archival storage.